Acquisition of a Transmission Electron Microscope

9413981 Gale This Academic Research Infrastructure Program (Instrumentation) Award is to provide partial support for the purchase of a transmission electron microscope. This electron microscope will significantly enhance the capability to conduct materials research for 21 faculty in engineering and the physical sciences as well as improved skills for students. ***